Summer Undergraduate Research Program

*** 9732621 Hyde The proposed project continues a summer undergraduate research program already in place for the past four summers at Baylor and currently supported by both Baylor and the National Science Foundation. Seven students will be selected from open applications with the program advertised at universities around the nation, smaller undergraduate institutions with little or no research capability and historically minority institutions. Complete application information, departmental research information as well as the ability to apply to the program "on-line" is provided through a World Wide Web page located at www.baylor.edu/~Truell_Hyde/Scripts/URC.html. allows identification and recruitment of outstanding students from small, private institutions in the Texas, Oklahoma, Louisiana, Arkansas, and Kansas areas. The NSF Fellows will interact during the summer with Baylor undergraduate and graduate students from both the United States and several foreign countries. They will participate in twice weekly seminars, social activities, an end of the summer Undergraduate Research Symposium and specially designed classes in various physics research fields of interest. As in the past, it is expected that at least some of the summer research done by the NSF Fellows will result in peer reviewed publications. Trips to nearby industries and research facilities, social activities as well as joint research seminars will be offered (as in the past) in cooperation with other REU activities that will be held on the same campus. This provides for a much larger number of NSF Summer Fellows with which to interact during the ten week period and aids in producing a "large" program feel. ***